RUI: Interactions Between Homotopy Theory and Commutative Algebra

In recent years, there have been many deep connections found between
homotopy theory and commutative algebra. This research continues this
pursuit in several such directions. First, the study of topological spaces
or structured spectra through algebraic invariants, such as homotopy or
(co-)homology, can be studied from the global perspective on the
algebraic side via a moduli space of structures. A fine invariant for
studying such a moduli space is the cotangent complex associated to the
given algebra. One part of this research, in joint work with Paul Goerss,
will look to extend the study of Hopkins-Miller-Mahowald-Goerss on
topological modular forms from, which realized Lubin-Tate algebras as
E_\infinity ring spectra and calculated their endomorphisms, to more
general Shimura varieties. In a similar vein, this research will
seek to clarify, in joint work with David Blanc and Mark Johnson, how a
variation of this cotangent complex controls the question of
realizing a diagram of
\Pi-algebras as a diagram of spaces, by looking for ways of connecting
cohomological obstructions to things like Toda brackets. Finally, this
research will seek to extend Grothendieck's program for classifying smooth
schemes to more general schemes in the setting of derived algebraic geometry.
The driving mechanism will be to take the cotangent complex to be the proper
analogue of the Kahler differentials and generalize accordingly. This would
frame the approach of characterizing commutative algebras using the
simplicial resolutions (as ultimately articulated by M. Andre and D.
Quillen) in
an algebraic geometric setting.

Throughout the history of string theory in theoretical physics,
surprising connections
have been made between several areas of pure mathematics - in
particular, number
theory and topology. One such connection has been made between the
arithmetic of
elliptic curves and modular forms, important in A. Wiles resolution
of Fermat's Last
Theorem, and cohomology theories in topology - the connection
being relevant to string theory via the concept of elliptic genera.
From the topologist's
standpoint, some of the relevant properties being sought can be
expressed in terms of
whether the cohomology's associated spectrum possesses a suitable
multiplicative structure.
The question of realizing such structures can lead to questions
regarding ways in which
commutative algebras and homotopical structures in topology interact.
The goal of this
research is to further understand such interactions in two ways. The
first is to collectively
study all possible multiplicative structures on a spectrum with a
prescribed algebraic data
via the concept of a moduli space. The other approach utilizes a
global geometric device,
called a stack, to understand these multiplicative spectra
collectively in the context of a
more homotopical notion of algebraic geometry. The aim of this
research will then focus
on studying other possible multiplicative spectra associated to
cohomology theories which arise
from more general arithmetic forms, such as automorphic forms.
Involved in this project
is also the aim to characterize basic types of objects in this
homotopical algebraic geometry
and drawing connections to recent homological characterizations of algebras.